Financial Support for the 6th Annual Penn State Symposium in Plant Physiology, May 23-25, 1991, University Park, PA

Partial support for the sixth in an annual meeting series held in eastern USA is provided for this year's topic which is focused on the role of active oxygen species on plant metabolism. Relationship of these species to plant stresses as well as normal aspects of growth and development will assessed.